Control of Distributed Nonlinear Systems and Semiconductor Manufacturing

ECS-9700588 Tannenbaum The proposal deals with partial differential equation methods for the control of distributed and nonlinear systems. In particular, the focus is on the benchmark area of certain key semiconductor manufacturing processes including etching, deposition and lithography. We will also discuss some new directions we are taking on the robust control of distributed parameter systems using skew Toeplitz theory. This allows one to reduce the design of H -optimal and suboptimal compensators to finite dimensional linear algebra problem, the dimension of which only depends on the McMillan degrees of the weights and not the (state-space) dimension of the plant. Thus even for infinite dimensional systems, we are reduced to finite matrix manipulations. We will also consider some time-varying generalizations of these ideas.